Recovery of Unquenchable High Pressure Phases by a Cryogenic Technique

9628678 Leinenweber The proposed research focuses on the recovery of several unquenchable phases which are of long-standing interest in mineral physics. A primary target will be unquenchable CaSiO3 perovskite. Low temperature x-ray and spectroscopic studies will be performed on this phase to determine details of its structure and dynamics. Another target synthesis will be of the high pressure monoclinic for of SiO2 cristobalite, for structure solution and refinement of x-ray and neutron diffraction. Low temperature Raman and x-ray studies of the baddeleyite phase Ca(OH)2 will be performed. Also targeted are unquenchable FeTiO3 perovskite and related compounds such as MnTiO3 perovskite, and high pressure AlPO4. The studies proposed here are non-destructive, so the sample will also be available for further work.